EAGER: Integrating Open and Equitable Research into Open Science

This project will explore a transformative model of interdisciplinary research and evaluation of current and proposed open science policies, practices, and interventions. This model, the Fellows and Leaders in Open and Equitable Scholarship (FLOES) model, aims to help academic researchers partner with operational platforms and ongoing open science initiatives to embed experiments and measurements into existing science systems and activities. The program will be transformative by pioneering a new scalable methodology, seeding a new generation of researchers focused on open scholarship, and building a coalition among practitioners and researchers engaged in open and equitable research.

This Office of Advanced Cyberinfrastructure project is co-funded by the Science of Science program in the NSF Directorate for Social, Behavioral and Economic Sciences.